Institutional Response to Global Climate Change: The Coastal Barrier Analog

This study will examine the interaction of three major forces in the evolution of state policies governing management of coastal barrier systems: 1) short-term and long-term changes to the physical environment of coastal barriers; 2) substantive knowledge and expertise about environmental change processes; and 3) the implementation of alternative policy innovations in response to environmental change. Case studies of coastal states that have experienced environmental changes will be conducted to provide qualitative empirical validation of a conceptual model of institutional response to chronic environmental change. The work will also improve understanding of key relationships that stimulate environmental policy innovation. Increasing concern about global environmental change has focused attention on the detrimental effects that future climate change might exert on natural environments and society. This research will provide valuable theory and data for aiding societal decision making regarding environmental policies to plan for and protect against adverse effects of climate change.